CC* Integration: Enhancement and deployment of LDM7 for scientific data distribution

The University Corporation for Atmospheric Research (UCAR) distributes scientific weather
data from instruments and simulations to its 250 consortium member institutions via the Internet
Data Distribution (IDD) system. The software program used for this data distribution is called Local Data Manager
(LDM). LDM6, the current deployed version, has been in use since 2003. This project seeks to
create a higher performing solution for real-time scientific data distribution by leveraging Software Defined
Networking and OpenFlow technologies.

This project seeks to (i) deploy LDM7 on multiple campuses after provisioning
VLANs across campuses and regionals, and connecting them to a multipoint VLAN across Internet2’s
network, (ii) add new features for security and control-plane to LDM7, (iii) integrate LDM7
with an SDN controller (OESS) client for automated addition/deletion of VLAN segments to a
multipoint VLAN, (iv) collect information, and develop tools for simplifying VLAN provisioning
and testing L2 path connectivity and performance using perfSONAR and other tools, and (v)
run extensive tests of LDM7 for performance and reliability.